MMIA: Integrated Assessment of the Effects of Climate and Land Use Change on Ecosystem Dynamics, Stability and Resilience on the Mongolian Steppe

The project aims at the development of an integrated assessment system for exploring interactions of climate change and land use on the steppes of Mongolia and Inner Mongolia, northern China. the methodology combines remote-sensed vegetation indices with simulation modeling and ground truth analysis. Results will be interpreted from both scientific and policy perspectives. The goal of the study is to provide a means (the integrated assessment system) for determining how regional patterns of climate and land use interact to influence ecosystem dynamics and human utilization potential. The assessment system will be based on a spatially explicit GIS simulation model (SAVANNA). Integration of NDVI data will provide for the generation of ecosystem stability and resilience indices, and will allow evaluation of climate-land use interactions and impacts. The completed assessment system will be used to explore probable effects of future climate changes on ecosystem properties and human land use. Alternative policies for responding to climate change will be assessed